Operation of the Stony Brook Linac for Weak Interaction Measurements in Francium and Nuclear Structure Studies

The Stony Brook Superconducting LINAC is a low-energy heavy ion
accelerator with a broadly based research program that studies
special properties of nuclei and atoms. The research emphasizes
frontier issues in physics. The rare element, francium, has been
produced and trapped with lasers, and work is now going on to
measure the anapole moments of several francium nuclei. The anapole
moment arises from the weak interactions between neutrons and
protons in the nucleus. Other research focuses on unusual nuclei
that exhibit a "handedness" to their structure, and nuclei that are
stressed by large excitation energy, large amounts of angular
momentum or large difference in neutrons from that of stable
nuclei. The Stony Brook Nuclear Structure Laboratory also serves as
a focus of many educational activities. Students at the high
school, undergraduate, graduate, and postdoctoral levels participate
in the research program with various intensities, from beam line
construction to running actual experiments.